CAREER: Software Reliability Assessment for High Assurance Systems

Ensuring that high assurance systems meet their reliability requirements
prior to deployment is essential. The research focuses on combining the
strengths of formal verification methods and program testing. The cornerstone
of this unified, quantitative software reliability assessment framework is
the use of Bayesian inference. Subjective probabilities of software failures
are obtained through formal or informal verification. Statistical testing
can either corroborate that the required reliability level is met, or it
indicates that the subjectively established failure probabilities are not
realistic, prompting the need for rework and improvement. Several
combinations of verification techniques and statistical testing are
based on program structure. Research objectives include the identification
of program designs, which make software reliability assessment feasible,
and demonstration of their suitability for high assurance applications.

Educational activities accompanying the research theme include research
experience for undergraduate and graduate students, and curriculum
development. The goal of educational activities is to expose students
to the development and assurance of complex systems through their
participation in experiments and case studies. Participating students
form multidisciplinary teams including computer science, computer
engineering and electrical engineering majors.